EPR Imaging

This project is in the general area of analytical and surface chemistry and in the subfield of electron paramagnetic resonance (EPR) spectroscopy. Professor Gareth Eaton of the University of Denver and Professors Sandra Eaton and Martin Maltempo of the University of Colorado at Denver are working collaboratively to develop EPR imaging as a viable tool for the determination of the three-dimensional distribution of radicals in various materials. This technique would also enable the determination of the full hyperfine spectrum of the radical at each point in space, for nonuniform distributions of radicals. The current effort of these investigators builds upon the initial instrumentation development work in this area by Gareth and Sandra Eaton which was supported under NSF grant CHE-8421281. The successful development of EPR imaging would allow the non-invasive, three-dimensional characterization of paramagnetic centers, both metallic and non- metallic, in a broad array of materials including those of biological interest. Unlike its now well-developed nuclear magnetic resonance (NMR) analogue, EPR imaging suffers from inherently broad resonances, which necessitate very strong magnetic field gradients, as well as generally quite dilute concentrations of radicals. Countering this is the magnitude of the electron spin moment and, correspondingly, a signal-to-noise ratio which is significantly more favorable than that encountered in NMR. During the tenure of NSF grant CHE-8421281, the instrumentation necessary for the proof-of-concept testing of EPR imaging was developed. The primary thrust of the current research is the development of the software with which the three-dimensional EPR image is reconstructed from the from the acquired spectra and subsequently presented; also the breadth of application of this technique will be ascertained. This research award should permit a critical assessment of potential impact of this analytical technology.